MOREnet Expansion Phase 11

9625849 Mitchell, William Havlin, Robert Mihalevich, J. Rick University of Missouri MOREnet Expansion Phase II The University of Missouri requests support from NSF for connection to MOREnet. This grant will be used to help two institutions get access to the Internet. The two Missouri colleges are Linn State Technical College and Sanford-Brown College. MOREnet, a midlevel network in Missouri, will provide operations management and information services and it provides access to the Internet, a collection of interoperable networks connectine most research and education organizations in the United States. The Missouri colleges need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of Linn State Technical College and Sanford-Brown College as well as the community in general.